Variability of Tropical Indian Ocean Induced by Intraseasonal Atmospheric Forcing

0136836/Han

The goals of this project are: to determine the variability of the tropical Indian Ocean forced by intraseasonal atmospheric forcing; to understand the dynamics and thermodynamics of such variability; and to examine the impact of atmospheric intraseasonal forcing on oceanic seasonal variability and the Indian Ocean Zonal Mode.
The primary motivation is the presence of large intraseasonal fluctuations in currents, mixed layer depth and upper ocean temperature in the Indian Ocean. It is hoped that a better understanding of the processes involved will be useful for unraveling some of the questions about how regional climate is determined.

Numerical simulations will be made with the ocean component of the National Center for Atmospheric Rresearch's climate system model. From a diagnostic study of the comparison of the response of the Indian Ocean to quasi-realistic forcing with and without intraseasonal variability, the nature of the response, and the processes responsible for it, will be determined. Numerical solutions will also be compared to data from the JASMINE and WOCE field experiments.